REU Site: REU Site for Pervasive and Mobile Computing

This project renews an exemplary existing Research Experience for Undergraduates site focused on the areas of pervasive and mobile computing. While the previous project focused on the use of wireless and handheld devices by law enforcement and emergency response personnel, this project incorporates a more general research track. A nationwide recruitment process is used to select cohorts of undergraduate students to participate in a ten-week summer research program at the host institution. Particular emphasis is placed on recruitment of students from under-represented populations. The project includes mentoring by the experienced computer science faculty members, technical seminars and workshops, student presentations, and field trips and other professional development opportunities. The project refines the recruitment, selection, and performance evaluation processed developed in the previous REU site project at the institution.

Intellectual Merit: The intellectual merit of this project lies in strong research basis and the expertise of the faculty. The projects are in current research areas that are of interest to the community at large and that have clear practical applications. The students participate in a full range of research activities from preparing research literature reviews to production and dissemination of research results.

Broader Impact: The broader impacts of the project include providing a quality research experience to undergraduate students, particularly students from underrepresented groups and community college students. The participating faculty members are committed to under-represented minority students in their research. Thus this project has the potential to produce new computer science graduate students and faculty members and to advance discovery and understanding while promoting learning.